The Effects of Term Limits for State Legislators

9422375 Niemi How term limits affect legislative representation was addressed as early as the debate surrounding the adoption of the Constitution, but the matter was then largely set aside for 200 years. Beginning with California in 1990, however, some sixteen states have enacted term limits for their state legislative or congressional representatives, and additional states are likely to enact such limits in the near future. Owing to this recent timing, most writings about the topic are prescriptive, but the arguments are intense and the claims are grandiose. This project is the first large-scale study of the actual effects of term limits, The investigators will focus on the state legislative level. The heart of the project consists of: a) a mail survey of all state legislators as of spring 1995; b) personal interviews during 1995 with legislators and key political observers in four states, one highly professionalized legislature with term limits, one more amateur legislature with term litis, and one of each type without term limits. In addition, the investigators will make use of data on state legislative elections as well as other published data about legislators and the legislatures. This project should substantially enhance our understanding of this interesting and important topic. ***